MRI/RUI: Acquisition of Equipment for Bioengineering Research at Lafayette College

0319578
Nesbit
Through the Major Research Instrumentation Program, the PIs will purchase instruments to enhance the bioengineering research capabilities and strengthen the curricular offerings of the Department of Mechanical Engineering at Lafayette College. The recent approval of a bioengineering minor, coupled with the current renovation of the engineering complex, make this an opportune time to acquire equipment that will supplement ongoing research in the study of human motion and radio-frequency ablation of tumors. An eight-camera image system for motion analysis and modeling software will be used for human motion studies. The equipment to be acquired for radio-frequency ablation studies includes the radio-frequency generator with electrodes and specialized temperature measuring equipment.